Mathematical Sciences: Stochastic Analysis and Optimization in Mathematical Economics

Stochastic Analysis will be utilized in order to further understand questions such as utility maximization in incomplete markets, equilibrium prices in a consumption based capital asset pricing model, optimal portfolios, consumption optimization, and transaction costs. This project should result in technical formulations leading to a more scientific management of financial decisions.